Linking Under Represented Minorities to Careers in Aquatic Sciences through a Scientific Society

This project is to provide support to Hampton University to institute a program, in cooperation with the American Society of Limnology and Oceanography (ASLO), to increase the numbers of under represented minorities electing careers in aquatic sciences and becoming involved in ASLO activities. The program is targeted at minority students, faculty, and professionals with interest in aquatic sciences, as well as majority faculty working at Historically Minority Colleges and Universities (HMCUs). The proposed activities include: an initial free membership in ASLO and support to attend annual meetings; pre.meeting workshops to prepare attendees for active participation in the meeting; and a special session during the meeting for HMCU representatives to make presentations. The combined efforts of an HMCU and a professional society should provide an effective mechanism to attract minority students and get them actively interested and involved in scientific research and professional society activities.